International Workshop on the Genesis of Peruvian Phosphorites and Sediments; Lima Peru; May, 1988

This award supports an International Workshop on the Genesis of Cenozoic Phosphorites and Associated Organic-Rich Sediments: Peruvian Continental Margin to be held in Lima, Peru for nine days during May, 1988. This workshop is the 14th program sponsored by IGCP 156--Phosphorites (International Geological Correlation Program) in ten years and only the second to be held south of Mexico. It will bring together scientists from North and South America to discuss the genesis of the Cenozoic sediments of the Pisco Basin and their revelance as a resource for the developing countries of the region. The organizers have planned an ambitious program which will benefit their own research as well as the Peruvian geological community. Two Peruvian scientists are involved, Dr. Jose Cruzado C. from PetroPeru and Ing. R. Cruzado from the Universidad de San Marcos, both in Lima. Additional scientists from other Peruvian universities, PetroPeru, and the Peruvian Geological Society will participate as well as scientists from other Latin American countries to be chosen through IGCP National Committees. Clearly, valuable contacts will be made, information exchanged and future collaborations explored.